K-theory of Operator Algebras and Its Applications to Topology of Manifolds

Project Title: K-theory of operator algebras and its
applications to topology of manifolds

Principal Investigator: Guoliang Yu

Abstract: The investigator proposes to study the K-theory
of operator algebras associated to metric spaces and groups, and its
applications to topology of manifolds. The K-theory of such
operator algebras are receptacles of higher indices of elliptic
differential operators and have important applications to problems
in differential geometry and topology of manifolds such as
the existence problem for Riemannian metrics with positive
scalar curvature, the Novikov conjecture on homotopy invariance of
higher signatures. The methods to be employed include
controlled operator K-theory, infinite dimensional almost flat bundles,
and geometric group theory.

Manifolds are spaces glued together by Euclidean spaces. Examples
of manifolds include spheres and tori. In differential geometry
one studies how manifolds are curved. For example a flat piece of
paper has zero curvature while the sphere has positive curvature.
This is why we can not bend a piece of paper into a sphere. A basic
problem in differential geometry is to determine when a manifold
can have positive scalar curvature. Another important problem in
mathematics is the classification of manifolds. By surgery theory
the classification problem for higher dimensional manifolds
can be essentially reduced to the Novikov conjecture. The K-theoretic
higher indices of certain elliptic differential operators can be used
to attack the positive scalar curvature problem and the Novikov
conjecture. A key step in this analytic approach is the computation
of the K-theoretic higher indices, which can be essentially
reduced to the problem of computing the K-theory of operator algebras
associated to metric spaces and groups.